Mathematical Sciences: The Topology and Geometry of Moduli of Vector Bundles on Riemann Surfaces

The research entails applications of geometric and analytic techniques to moduli problems in conformal field theory, mainly on Riemann surfaces. This topic is regarded with great importance in modern mathematical physics and lends itself to a deeper understanding of the large scale structure of space-time and vortex phenomena.